PPD: The Understanding Science Through Captioning Project

HRD-9712964 The language of science is difficult to learn for many children - but much more difficult for children who cannot hear. This project is designed to bring new technology into the classroom that can help deaf children to succeed in science by making both the language and the methods of science more accessible and engaging to them. Project objectives are: o To develop and implement strategies using video captioning technology to enhance student achievement in science at three schools for the deaf in New England. o To replicate the initial implementation in a school educating both deaf and hearing students. o To disseminate the findings of the research as well as the enhanced curriculum and strategies for its effective implementation. The project will integrate three building blocks: A successful science curriculum that is already sold nationally, a pedagogical collaboration with teachers of deaf students that has already extended over three years, and a new enabling technology that has been developed and evaluated specifically for children who are deaf. The project will bring these three components together creating a science curriculum that offers new opportunities to actively engage deaf children in doing and understanding science by reducing the pervasive barriers of time, motivation, and instructional methods that presently impede their progress. The curriculum will be elaborated and evaluated in classroom tests, modified as necessary, and then replicated and disseminated. The research design includes approximately 50 upper-school students in four schools for the deaf. Acknowledging the impossibility of adequate matching of control and experimental subjects, a full reversal (ABABAB) design will allow evaluation of whether the intervention condition is associated with enhanced learning. Both quantitative and qualitative methods will be used to maximize the generalizability of the results and to capture valuable informati on obtainable only from individuals. The four different pedagogical approaches of the participating schools in the study ensures broad applicability to educational settings for children who are deaf. The science curricula and methods developed in this study will have an immediate impact in the four schools within the study and on all schools that already use this science curriculum. Beyond these schools and this specific curriculum, however, the tools and methods developed in this project should have wide general applicability.